The Role of Gaussian Curvature in Harmonic Analysis and Related Areas

ABSTRACT:
The author proposes to study a set of problems in harmonic analysis and
related areas where the Gaussian curvature, the determinant of the
differential of the Gauss map taking the point on a hypersurface to the
unit normal at that point, plays an important role. More specifically,
the author proposes to study the following three basic problems:
regularity of averages over surfaces, distribution of lattice points in
convex domains, and the existence of orthogonal exponential bases for
domains in Euclidean space. In the context of averages over surfaces, we
propose to find a set of necessary and sufficient conditions for the
Lebesgue space boundedness of these averages in terms of natural and
easily computable geometric criteria. In the context of lattice points
in convex domains, we propose to compute a sharp rate of growth for the
discrepancy between the volume of a dilated convex body and the number
of lattice points trapped inside, again in terms of natural geometric
properties of the boundary. In the context of orthogonal exponential
bases, we propose to make progress towards the proof of the Fuglede
Conjecture, which says that a domain has orthogonal exponential basis if
and only if it is possible to tile Euclidean space with disjoint
translates of this domain. Combinatorial and number theoretic methods
are expected to play an important role.

The study of the maximal averaging operators and other similar operators
in harmonic analysis is partially motivated by the following interesting
question: How close can we come to recovering a set of data from the
various kinds of averages of that data? The question is of potential
practical value since scientists are often called upon to make
predictions based on average information. For example, meteorologists
make predictions about the rainfall in a particular location based on
the average rainfall in years past in nearby towns.
Seismologists make earthquake predictions based on the pattern of shocks
in the surrounding area. The tradeoff involved in the study of these
phenomena is, roughly speaking, the following. If the data is very
precise, then it can, generally speaking, be recovered from any kind of
a reasonable average. If the data is less precise, then we have to make
sure that the averaging process compensates for the deficiencies of the
data. The main thrust of this project is to study the averaging
phenomenon when the data is given by a certain kind of a mathematical
function, and the average is taken over a curved surface. The study of
the distribution of lattice points in convex domains and the associated
discrepancy function is motivated by the desire to approximate discrete
information, for example integer points in the plane, by more easily
computable continuous information, in this case the area. Finally, the
study of orthogonal exponential bases is motivated by an important
practical problem of approximating functions by trigonometric functions.
These types of approximations have numerous applications in physics,
engineering, and many other areas of science and technology.